ITR: Cluster Based Computational Techniques for the Modelling of Problems Involving Bifurcations

This project will address the needs of researchers involved in solving large nonlinear problems, which exhibit multiple solution paths, or large-scale minimization problems with multiple local minima. It will develop a library of visualization and computational steering tools to address path following problems efficiently on Beowulf computer clusters. It will also provide tools for optimization of the cluster communication. It will produce tools that are integrated with the CUMULVS steering and visualization environment. The software libraries will be open source and provided to the community of researchers and users.